Physics Laboratory Computerized Data Acquisition and Analysis in Electricity and Magnetism

9452547 Plumb This Instrumentation and Laboratory Improvement project will equip a laboratory/classroom and an open laboratory to support curriculum innovation in Physics courses that focus on Electricity and Magnetism. The curriculum development activities in Electricity and Magnetism continue the successful movement toward active student involvement and a heavily observation-based approach to the teaching of Mechanics. The curriculum development activities will precede and parallel the offering of a revised Electricity and Magnetism course in Fall 1994. We will network Macintosh Quadra 660 computers, equipped with Vernier Universal Lab Interface Boards, to an Apple Workgroup server. Students will use current and voltage probes, smart pulleys and other computerized data acquisition devices to construct and/or verify theoretical models in Electricity and Magnetism.